Equipment Grant for the Structural Dynamics Laboratories Department of Civil Engineering

This is an equipment grant to support the acquisition of test equipment for the structural and geotechnical laboratories at the Johns Hopkins University. With the University's matching support an adequate laboratory capbaility will be developed to conduct advanced seismic research involving system dynamics.